The Large Eddy Simulation of Surface Water Transport: PhaseI, A Study of the Higher Order Averaging and Closure Techniques for Two Dimensional Dynamic Models

The Large EddySimulation (LES) method results in turbulence models whose predictions show marked improvement in calculating not only the mean flow features, but also in calculating the theoretically expected features of the statistics of the turbulence fluctuations. These calculations are made with very coarse grids. The LES method will be adapted to time-varying flows and to irregular meshes. These adaptations will be tested by formulating a two-dimensional model of Lake Erie and comparing the results to an extensive library of field data andprevious model computations. A full turbulence simulation will also be used to test calculations made with various proposed modifications and subgrid scale expressions.